CRPA: Sparks of Discovery

This CRPA award addresses the issue of multidisciplinary science and the public's awareness of the ideas. The PIs believe that the prevalence of multidisciplinary science is high and growing fast. Thus, the public and particularly the younger generations need to understand these concepts and to begin thinking in those terms. Thus, they will derive hands-on modules for three age groups that are age appropriate. The project team includes 7 NSF funded researchers who do multidiscipline-based research in biology, mathematics and engineering.

These modules will be tested at the Boy and Girls Club of Dane County prior to being exhibited at the Madison Children's Museum and the Aldo Leopold Nature Center. Further, the local PBS TV station (WPT) will air some of the demonstrations giving the project more visibility and impact. Each set of modules designed for the three age groups shall be evaluated separately using age specific goals and objectives.

The project is a collaboration between 7 scientists and engineers, the Boys and Girls Club of Dane County, the Aldo Leopold Nature Center, the Madison Children's Museum, and the Wisconsin Institutes of Discovery of the University of Wisconsin.